CISE Research Instrumentation: Equipment for Research in Designing & Using Multiprocessor Systems

This award is to purchase an IBM 540 server and assorted peripheral devices to support research in design automation for single chip VLSI microprocessors, principles of design for high performance VLSI microprocessors, USC Macro Data-Flow project, data-driven approach to programming multiprocessor systems, neurobiology and simulation of neural nets for invariant object recognition. The University of Southern California will be investigating and evaluating multiprocessor systems for use in the next generation of computer systems. The departments of Electrical Engineering- Systems and Computer Science will be purchasing a server and assorted peripheral devices to support research projects which rely upon extensive simulation of complex hardware and software systems.